Nonparametric transition based-tests for Markov processes in financial econometrics

Nonparametric model identification and specification play a critical role
in asset pricing and risk management. The objective of the investigators is
to study a number of important model specification problems using
nonparametrically estimated transition densities and transition
distributions. The proposed method integrates a number of seemingly
unrelated model identification problems into a common paradigm, by framing
them as various restrictions on the transition density or distribution of
the underlying process, sampled at the observation frequency. This will
provide a rich framework for analyzing other similar problems. By
estimating the transition density and distribution under null and
alternative hypotheses, appropriate test statistics will be proposed and investigated. The
properties of the tests include
both the asymptotic null distributions and power functions and will also
be analyzed via carefully designed simulations. The relative merits of
various methods will be critically examined. Several testing problems
arising frequently in the empirical finance will be carefully
investigated.

The investigators intend to develop new techniques and theories that arise
from frontiers of financial econometrics. The investigators will develop
models and cutting-edge technologies for model specification problems in
economics and financial econometrics. Common characteristics of these
problems are that the dynamics of stocks and interest rates are hard to
specify and hence contemporary nonparametric techniques are particularly
powerful for these problems. The proposed techniques and results will have
strong impact on assest pricing, portfolio allocations, risk managements
and other problems in empirical finance. The project will integrate
research and education by working closely with both undergraduate and
graduate students, creating datasets and developing publicly available
computer code. Postdoctoral fellows and underrepresented groups will be
trained as a part of our research investigation. The results will be
disseminated broadly through presentations at seminars, conferences,
professional association meetings and via internet.